Acquisition of Controlled Environment Plant-Growth Chambers for Plant Biology Research at Purdue University

Abstract This proposal describes the types of plant biology research and range of reach-in and walk in controlled environment chamber capabilities that are required in the three complexes on the Purdue Agriculture campus. The proposal further describes how unique environmental capabilities of the new equipment in the three clusters will be networked, managed, and made available to funded programs in a truly multi-user instrumentations system.